SGER: SNAPS: Schemas for Narrative Authoring and Presentation Systems

This project is aimed at creating design schemas principles for knowledge creation and communication using parameterized narratives. The desired result are design schemas in the form of (1) prototypes for authoring environments that will put the procedural, simulation-building power of the computer in the hands of domain experts and writers allowing them to create multisequential and multiform scenarios without requiring them to program; (2) prototypes of presentation environments for users of such scenarios that will foreground the contrasts between instantiations, providing juxtapositions that will clarify complex causal chains and interrelationships in multi-causal scenarios; as well as (3) a summary set of design principles illustrated by appropriate schematic mockups that will contextualize these prototypes and focus a larger conversation on how to use narrative abstraction and story-related game mechanics to support the understanding of complex systems.